Global Challenge Award ITEST Program

The "Global Challenge Award ITEST Program" will engage young women and minority high school students in a series of integrated STEM activities. International teams of approximately 200 14-17 year old students will participate in the program receiving 280 hours of mentoring and tutoring from research scientists, engineers, mathematicians and project leaders. Eight to 10 team challenges will be designed to build students' prerequisite knowledge and skills to succeed in the annual GCA competition. Each year, students will participate in three primary activities: 1) hands-on engineering challenges, 2) the GCA World Challenge, and 3) individual mathematics tutoring and portfolio development to demonstrate science learning. The team goal is to create an innovative solution to address global climate change and a presentation that shows each team member's understanding of the science, technology, engineering and mathematics of their solution, as well as its global business potential. Educators participating in this project will receive over 120 hours over the life of the project. Approximately 135 parents or adults will participate in at least 60 hours of project activities.